Acquisition of ICP-MS for Research in Ocean and Earth Sciences

9401770 Batiza This award provides partial funding for the acquisition of an inductively-coupled plasma mass spectrometer (ICP-MS) system to be installed and operated in the School of Ocean and Earth Science and Technology at the University of Hawaii. The institution is committed to providing the remaining funds necessary for the acquisition. The instrument will be used to measure the concentration of elements and isotopes in a wide variety of natural solid and fluid samples. Approximately 30 research scientists will make use of the instrument's rapid and accurate chemical analytical capabilities in their research. Their research includes projects in the general fields of: (1) mid-ocean ridge processes, (2) processes in active back-arc basins and island arcs, (3) mantle plumes and hotspots, (4) deep interior of the Earth, (5) extraterrestrial materials, (6) marine mineral deposits, (7) marine particulates and sediments, (8) atmospheric particulates and sediment trap materials, (9) hydrothermal processes, and (10) Ocean drilling related research. ***